Discontinuous Galerkin and Hybridized Methods for Partial Differential Equations

This project is devoted to devising and studying, theoretically as well as computationally, efficient methods for numerically solving problems modeled by partial differential equations. We focus our efforts on the different difficulties raised by the application of the so-called discontinuous Galerkin method and the hybridized mixed methods to a variety of problems of practical interest. The applications are to the evolution of surfaces and to navigation of robots in arbitrary terrains (Hamilton-Jacobi equations), incompressible fluid flow (Navier-Stokes equations), structural mechanics with special emphasis on shells (elasticity equations), to electromagnetic wave propagation (Maxwell equations), and to Darcy flow in porous media (second-order elliptic equations).

For all of the above problems, we consider the problem of how to obtain highly accurate computer simulations. In many of these problems, the emphasis will be put on the suitable devising of the discontinuous Galerkin and hybridized methods so that they become more robust and efficient than previously known methods. In others, the effort will be concentrated in the efficient control of the quality of the simulation. Indeed, since the exact solution of these complex problems is not known, to guarantee a given accuracy of the simulation, special techniques have to be devised in order to assess its quality. Moreover, these techniques can be employed to automatically let the computer know when and where to increase or decrease the computational effort to obtain the simulation; in this way, the efficiency of its computation is significantly enhanced. Discontinuous Galerkin methods are particularly well suited for this approach.